Airborne Measurements of Acidic Trace Gases and Aerosol Associated 210Pb, 7Be, and 10Be for the NSF/NCAR Tropospheric Ozone Production about the Spring Equinox (TOPSE) Experiment

The proposed investigation will provide measurements of selected acidic gases and aerosol species aboard the NSF/NCAR C-130 research aircraft for the TOPSE airborne experiment. TOPSE is the Tropospheric Ozone Production about the Spring Equinox experiment, which is a multi-investigator program designed to study the production and transport of ozone and other contaminant compounds over the mid-latitude to polar Northern Hemisphere during the transition from winter to spring conditions. The principal focus of this investigation is on HNO3, with additional measurements of SO2, HCOOH, CH3COOH, and the naturally occurring radionuclides 210Pb, 7Be, and 10Be. These measurements will address issues involving the sources, partitioning, and cycling of reactive nitrogen, the photochemistry of organic compounds in the polar springtime, and the origin of air masses encountered during the study.